Improved Meterological Measurements for the University National Oceanographic Laboratory System (UNOLS) Fleet

More accurate meteorological data is required for many of the research efforts planned as part of the World Ocean Circulation Experiment (WOCE), which will begin field experiments in 1992. Although many sensors are available commercially, their accuracy and calibration for ships and buoys had not been tested until recently. Work completed in an initial grant to the PI's (OCE-87- 09614) quantified the performance characteristics of some buoy and ship sensors, and cooperation between the PI's and manufacturers resulted in improvements to these sensors. Development of a data logging system that is applicable to any sensor was also completed and licensed to a commercial manufacturer. The improved sensor system is known as IMET, for Improved METeorological. This grant provides funding for the final documentation of the recently developed IMET sensor system. This documentation will allow the rest of the oceanographic community to install and maintain the IMET system on a variety of research vessels.